Fundamental Interactions in Atoms and Molecules

Professor Hinds will continue his studies on time reversal invariance by using a molecular beam of thallium fluoride (TIF) and observing the nuclear spin resonance of this molecule. He will also study the unusual physics of atoms confined to micron- sized cavities. Among the experiments planned is the first precise measurement of the Casimir force between an atom and a cavity.